Secure Mobile Systems

Survivability and secure communications are essential in a mobile
computing environment. We propose to conduct a series of experiments
that will lead to the development of new authentication and key management
techniques for wireless communications. We study the implementation of
various authentication schemes on the overall system performance. We
propose a technique to achieve fault-tolerant mobile node authentication
in an efficient way. We plan to identify guidelines for authentication
between an upstream domain and a DiffServ ingress router in a QoS enabled
network. We will evaluate how various secure group communication and
access control techniques fit into the wireless world by conducting
scientific experiments in a systematic way. We will solve the problem of
providing secure multimedia communication under mobile environments where
the resources available to mobile hosts such as CPU power and network
bandwidth are very limited. We have developed a series of light-weight
video encryption algorithms which encompass video compression and video
encryption in one step. This will lead towards an adaptable
encryption system.